The California Regional Consortium for Engineering Advances in Technological Excellence (CREATE)

This is a project to develop a regional approach to the preparation and training of engineering technicians. These include technicians for the engineering technology fields of robotics, computer servicing and networking, manufacturing, and electronic technologies. The two/three year program begins with a common core curriculum in engineering technology at the seven community colleges which comprise the CREATE consortium. Each campus will then offer at least one of ten advanced technological specialties. Students from any one of the participating colleges will be able to transfer to any other college in the Consortium. In Phase I planning and pilot work will be done.